Lateral Explusion of Pore Fluids during Vertical Loading of Sedimetary Strata

The project carries out a two year study of lateral expulsion of pore fluids resulting from vertical loading of sedimentary strata by both tectonic and depositional processes. The study focusses on 1) compaction and topography-driven lateral flow as a mechanism of mass and heat transport in sedimentary layers, 2) variations in the flow pattern of pore water caused by the temporal and spatial changes in porosity and permeability, 3) geochemical and paleomagnetic evidence for and constraints on lateral flow, and 4) application of these results to the lateral migration of pore fluids and hydrocarbons in the Appalachian and Colville Foreland Basins and the Northern Gulf Coast Passive Margin. The objective of the project is to better understand the role of pore fluid migration and diagenesis in sedimentary layers and to be able to use this information quantitatively in the evaluation of fluid expulsion as a mechanism for heat and mass transfer in sedimentary basins.